Establishing Student Competence In Assessing Chemical And Physical Stressors In The Occupational Environment

9351824 George Assessing the risk incurred by a worker as a result of occupational exposure to chemical or physical agents is an extremely complex process involving the interaction of a variety of scientific disciplines. One vital aspect of risk assessment is the accurate quantification of worker exposure to the agent(s) involved. The specific aim of this proposal is to provide the Industrial Hygiene curriculum with the instrumentation necessary to teach students the basic skills involved in adequate quantification of chemical/physical stressors in the occupational environment. The equipment requested enables students to gain expertise in quantification techniques covering a broad range of commonly encountered occupational hazards. Students will gain knowledge in the scientific principles of instrument operation, procedures of instrument calibration and manipulation, and the actual use of the equipment in field situations.